CEDAR: Clustered Measurements of Space and Temperature Variability in the Winds of Upper Mesospheric and Upper Thermospheric Heights in the Auroral Zone

The investigators are using several Fabry-Perot instruments to study thermospheric and mesospheric small scale structures in wind and temperature. In addition to mapping horizontal vectors of upper mesospheric wind, they obtain wind observations at the highest possible time resolution. Then, they study vertical wind characteristics and associated occurrences resolving spatial/temporal ambiguities. Thus, the specific objectives of their research are (1) imaging the vector wind field in the upper mesosphere, (2) obtaining temporal and spatial variances in upper mesospheric winds, temperatures and emission rates, as well as the spectral characteristics of fluctuations, and (3) testing the hypothesis that there is no statistically significant variation in distributed variance of wind or temperature emission rate measurements as a function of position in the all-sky view.